NSF Industry/University Cooperative Research Center on Compact, High-Performance Cooling Technologies Research

This action provides continued funding for the second five year term of the Industry/University Cooperative Research Center (I/UCRC) for Compact High Performance Cooling Technologies. This I/UCRC addresses research and development needs of industries in the area of high-performance heat removal from compact spaces. All product sectors in the electronics industry (High-Performance, Cost/Performance, Telecommunications, Hand-held, Automotive, and Military/Avionics) face critical electronics cooling challenges, and the Center brings together faculty from the Schools of Mechanical Engineering, Electrical and Computer Engineering and Aeronautics and Astronautics at Purdue University, and contribute complimentary competencies in heart transfer, microfluidics, microfabrication, refrigeration, computational techniques, mechatronics, controls, acoustics, sensing and actuation and diagnostics and measurements.